Mathematical Approaches to Epidemiological Studies of the Emergence, Re-Emergence and Persistence of Infectious Diseases

Li
0078250
The investigator develops mathematical models to investigate
several important epidemiological and ecological factors for the
emergence, re-emergence and persistence of infectious diseases.
The project has three goals: (1) to develop a new mathematical
framework in epidemiological modeling that links the human
population to its environment, (2) to introduce and develop a new
mathematical approach to the analysis of epidemic models, (3) to
stimulate mathematical development of more effective analytical
and numerical tools for resolving important computational issues
arising from the model analysis. The work is carried out along
two main themes: Theme I. Develop a mathematical framework in
epidemiological modeling using network models that takes into
account the full cycle of a disease in nature and encompasses
three interconnected key elements: human hosts, intermediate
hosts and disease vectors, and environment. Theme II. Develop an
approach to the analysis of epidemic models using the method of
singular perturbation to further our understanding of several key
biological issues such as robust mechanisms for cyclic temporal
patterns in disease incidence and the short-term evolution of
disease pathogenicity. Computational issues arising from the
large scale systems in network models and from the multiple time
scales that are inherent in disease transmission processes are
also investigated.
The global spread of infectious diseases and the emergence
of drug-resistant disease agents are causes for alarm at the end
of the 20th century. As the world population continues to
explode, the world economies continue to become globalized,
individual interactions and international travel continues to
increase, and the environment around the globe continues to be
devastated, the effective control and prevention of the global
spread of infectious diseases is destined to be one of the grand
challenges facing mankind in the new millennium. Essential to our
success in meeting this challenge is a renewed effort in
epidemiological studies, a better understanding of the
transmission and spread mechanisms of various diseases, and more
effective disease control and prevention measures based on these
studies and the new understanding. While the nature and scale of
the problems at hand inevitably limit the effectiveness of
experimental approaches, mathematical modeling has proven to be a
valuable approach and an indispensable tool for understanding the
problems, for testing hypotheses, and for predicting effective
measures of control and prevention. It is expected that results
from the project can advance our understanding of the basic
ecological and epidemiological mechanisms for the emergence,
re-emergence and persistence of infectious diseases and their
associated temporal patterns, and improve the present theoretical
basis for effective disease control and prevention strategies.